MRI: Development of a Femtosecond Scattering SFG Instrument

1125791
Castner

This proposal requests funding to design, build and commission a femtosecond SFG scattering instrument. Once commissioned it will be used to examine the structure of molecules at interfaces (liquid/solid, air/solid, air/liquid). The scattering patterns generated by this instrument from particles in solution provide insight into the size and shape of the particles. The spectra generated by this instrument provide information about the structure of molecules bound to these particles. A femtosecond SFG scattering instrument is ideal for in situ characterization of nanoparticles (NPs) in complex solutions and will provide important, new information about those NPs, molecules bound to the NPs, and solvent molecules interacting with the NPs. This instrument will be integrated into the National ESCA and Surface Analysis Center for Biomedical Problems (NESA/BIO), allowing a wide range of researchers access to this novel instrument.